Semantic Foundations of Concurrent Systems

The primary goal of this research is to broaden the theoretical framework of concurrent computing systems. In particular, a number of basic, conceptual issues that arise in parallel and distributed computing, including fairness, the expressiveness of indeterminate primitives, the possibility of developing a fixed-point denotational semantics, the relationship with an operational semantics, and identifying useful process logics will be studied. Once the basic issues underlying concurrent systems are understood, researchers can begin to harness the power of multi-processors more effectively. To facilitate a greater understanding of concurrency, a new semantic model of concurrency, a fixed-point, denotational model will be developed. This model will lead to a new induction principles and to new insights about the role of continuity in the mathematical semantics of concurrency. In addition, the model will help in the classification of different types of indeterminate primitives. Ultimately, this will lead to a greater understanding of the meaning of sequentially and concurrency.